Core Models and Combinatorial Set Theory

This is a mathematical research project on core models and their fine
structure, which is a subfield of set theory that was pioneered by Jensen.
Core models are generalizations of Goedel's constructible universe, L,
that arose in the the study of large cardinal axioms. The field today
builds on the fundamental discoveries of Dodd, Jensen, Martin, Mitchell,
Steel and Woodin. The project is on pure core model theory as well as its
interactions with other areas, such as descriptive set theory and
infinitary combinatorics. Several of the research problems are on
combinatorial principles such as Diamond and Square, which were isolated
by Jensen in his work on L. They are among the most commonly used tools in
set theoretic constructions and have applications in neighboring fields
such as model theory and topology. Other research problems have their
origins outside of core model theory. These include open questions about
descriptive set theory, forcing, singular cardinal combinatorics and
cardinal invariants.

The axioms of set theory are the foundation of mathematics. Core model
theory addresses some of the most fundamental questions in set theory in
direct and highly sophisticated ways. Ideas are constantly exchanged
between core model theory and other parts of set theory. The research
problems to be addressed in this project are central in these respects.
Some ask for further development of the basic tools of core model theory,
while others are about applications to neighboring fields.